Computer Research Equipment

A turning center with powered rotating tool will be provided for researchers at the University of Utah for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of remote computer integrated manufacturing, CAD-Based Vision, and automatic generation of code from computer based geometric models.